Some Problems in High Dimensional Manifold Topology

DMS-0305423
F. Thomas Farrell

The goal of this project is to investigate certain problems in high
dimensional manifold topology and connections with Riemannian
geometry and algebraic K- and L-theories. A basic problem posed
by Borel is to determine whether closed aspherical manifolds with
isomorphic fundamental groups are homeomorphic. This problem
has led to two families of conjectures of a functorial nature: the
Isomorphism and the Fibered Isomorphism Conjectures. These
conjectures are of central importance to much of this project.
Besides Borel's other related geometric problems will be addressed.
These include: a generalized Nielsen Question; replacing a map to
an aspherical manifold by an approximate fibration; determining
whether a smooth manifold homeomorphic to a closed negatively
curved manifold supports a negatively curved Riemannian metric;
and seeing if complete compact affine flat manifolds with isomorphic
fundamental groups are diffeomorphic.

Manifolds are geometric objects which locally resemble the space of
Euclidean geometry; but could be quite different globally. Roughly
speaking a manifold M is (strongly) aspherical if this local resemblance
is determined globally by a continuous correspondence p from the
points in Euclidean space E to the points in M. And M is closed if this
correspondence maps some ball in E onto M. ( Caveat: The
correspondence p is never one-to-one when M is closed.) The
fundamental group of M consists of all the motions of E which preserve
the correspondence p. Some examples of closed aspherical manifolds are
the circle and the surface of the doughnut. In the case of the circle, the
correspondence p sends the real number x to the point (cos(x), sin(x))
and the fundamental group of the circle consists of all translations by an
integral multiple of the circumference of the circle. The Moebius band is
another example of an aspherical manifold; but it is not closed. On the other
hand, the sphere is a manifold which is not aspherical. A pair of closed
manifolds are homeomorphic if their points can be placed in a continuously
varying one-to-one correspondence. The answer to Borel's problem is well
known to be Yes for aspherical manifolds of dimensions 1 or 2; but is in
general unknown even for 3-dimensional manifolds.